MRI: Acquisition of an LC/MS system for Research in Chemistry and Biochemistry

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry and Biochemistry at the University of Detroit-Mercy will acquire a liquid chromatograph with mass spectrometric detection. This versatile system includes a photodiode array detector and a quadrupole mass spectrometry detector with atmospheric pressure electrospray and chemical ionization sources. This equipment will enhance research in a number of areas including characterization of verdazyl free radicals, isoflavones and their metabolites and modified peptides.

Liquid chromatography with mass spectrometric detection (LCMS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research at this primarily undergraduate institution. The LCMS will also be used in advanced courses.